A Method for Rapid Determination of Monomer Sequences in Linear Polymeric Molecules such as Nucleic Acids

9421831 Branton We propose a new method for rapidly sequencing polymers such as DNA or RNA. The method involves measurements of ionic current modulation as the nucleotides of a linear nucleic acid molecule pass through a channel in an artificial membrane. Our immediate goal is to prove that we can draw single stranded DNA or RNA through a continuously open channel in a lipid bilayer and to demonstrate that, during polymer passage through the channel, ionic currents are reduced in a manner that reflects the properties of the polymer (length, nucleotide composition, etc.). Our long term goals are to demonstrate the feasibility of using a patch-clamp- like approach for direct electro-sensing of monomer sequences in a linear polymer of DNA; and develop this as a routine procedure for sequencing. Because the approach proposed eliminates several of the currently required preparatory chemical steps in DNA sequencing and because it depends on inherently rapid, molecular events, successful sequencing with this method will be an extraordinarily important advance that should reduce the time and cost of nucleic acid sequencing by several orders of magnitude. %%% A new method for the rapid sequencing of nucleic acid polymers like DNA and RNA will be developed. The method to be used involves measurements of changes in ionic currents as the individual building blocks of a nucleic acid pass through a channel in an artificial lipid membrane. The immediate goal of this research project is to show that single stranded DNA or RNA can be drawn through a continuously open channel in the membrane (lipid bilayer) and to demonstrate that during passage of the polymer changes in ionic currents are reduced in a manner that reflects the properties of the nucleic acid (i.e., length, composition of the individual nucleotides which make up the nucleic acid). The long term goals are to demonstrate the feasibility of using this patch- clamp-like approach for direct electro-sensing of ind ividual nucleotides (the building blocks of nucleic acids) in the linear sequence of DNA; and to develop this as a routine procedure for DNA sequencing. Because the proposed approach eliminates several of the currently required preparatory chemical steps in DNA sequencing and because it depends on inherently rapid molecular events, successful sequencing with this method will be an important advance that should reduce the time and cost of nucleic acid sequencing by several orders of magnitude.